Modeling of Unsteady Free-Surface flow, Paarticipation of a Scientist from Bangladesh in Research at Washingtin State University, Pullman, WA.

Description: The project supports the visit of a scientist from Bangladesh, Dr. M.A. Bhuiyan, Department of Water Resources Engineering, Bangladesh University of Engineering and Technology in Dhaka, to participate in research with Dr. M. Hanif Chaudhry, at the Albrook Hydraulics Laboratory at Washington State University. Dr. Bhuiyan will participate in the development and verification of a mathematical model for the unsteady two- dimensional free-surface flow with shocks and bores. The model will be based on finite- element method. Experimental data will be obtained on an existing test facility. Scope: This project provides for participation of a highly qualified young scientist from a developing country in multi-faceted research in a well established, modern, U.S. laboratory in the area of hydraulics. His expertise in finite element analysis of unsteady flows will benefit the U.S. research effort, while he gains experimental skills and knowledge in this important field. It is hoped that this will lead to further substantial joint research involving scientists from the two institutes in the area of fluid flow, and especially in flood research and management.